Experimental Particle Physics

This proposal requests continuing support for the particle physics group at Northeastern University covering a comprehensive three-year program of studies of the top quark and electroweak physics at the D0 experiment at the Fermilab Tevatron and preparation plans for the turn-on of the CMS detector at the Large Hadron Collider (LHC) at CERN, near Geneva, Switzerland. Experimental particle physics at the energy frontier has taken on a new importance in light of recent cosmological and astrophysical data. It is an exciting time to pursue this forefront research. The proposal describes the proposed activities in the following two areas: (1) Electroweak (EW) and top-quark physics in D0. This activity also includes the group's hardware and software responsibilities in the collaboration. (2) Construction and preparation for physics in CMS. The group's goal on CMS is to carry out a wide range of research studies, with an emphasis on electroweak physics and searches for new phenomena.
The group is active in a broad range of outreach and education initiatives. These activities are connected to their core research program by involving students in the research at CERN and Fermilab.